Geomagnetic and Tectonic Implications of a New Magnetic Polarity Timescale

An investigation of the geomagnetic and tectonic implications of a new geomagnetic polarity time scale for the late Cretaceous and Cenozoic developed by the PIs from a global magnetic anomaly data. The objectives of the study are to further search for small variations in the magnetic signal between anomalies and to statistically analyze polarity dependent bias.